Algorithmic Aspects of VLSI

This research studies a number of algorithmic issues related to the design of VLSI chips and wafers. The foremost interest is the problem of the efficient design of fault-tolerant arrays of processors. Next in priority is the problem of how to render feasible the exhaustive test approach to VLSI self-test. A third continuing area of concern is multilayer circuit realizations, where the attention is shifting from abstract layout-theoretic issues to CAD-algorithmic ones. A new area of interest includes algorithmic (in contrast to systems-oriented) aspects of the "silicon compilation" problem. All of these topics encompass problems ranging from abstract mathematical questions to concrete engineering issues. The intent is to tackle the problems at several points along this abstract-to-concrete spectrum.